The Acquisition of a Stable Isotope Mass-Spectrometer with CN Analyzer and Water Equilibration Unit

9529838 Swart This award will support purchase of a mass spectrometer for analysis of light stable isotopes (CHON). The system will be coupled to a CN analyzer to permit analyses on organic samples using continuous flow, and will include an automated system for water equilibration for oxygen and hydrogen isotopes. ***